Search for Standard Model Charm Baryon Particles at FNAL E781

9602178 Thomas The grant supports research by a faculty member under the NSF program Research In Undergraduate Institutions. He, undergraduate students and a Master's degree candidate participate in an experiment at Fermilab to study Charm baryon properties as members of a collaboration. They participate in data taking operations at Fermilab, as well as have responsibility for some software development and data analysis. ***